Curvature rigidity, quasi-local mass and related problems

Abstract

Award: DMS-0505645
Principal Investigator: Xiaodong Wang

One of the central themes in differential geometry is to
understand curvature and its implications in terms of geometric
and topological properties. Despite the enormous progress made
during the last several decades, there remain many fundamental
problems. This project is to study several such problems
involving the scalar curvature. The first one is to understand
the boundary effect on manifolds with convex boundary and
positive scalar curvature. This is closely related to
understanding quasi-local mass in general relativity. A key
specific case is whether a compact three-manifold with scalar
curvature bigger or equal to six whose boundary is totally
geodesic and isometric to the standard two-sphere is isometric to
the three dimensional hemisphere. The second problem is whether
on a compact hyperbolic three-manifold the Yamabe number is
achieved by the hyperbolic metric. If true it will be a
remarkable generalization of several deep results in Riemannian
geometry. It is equivalent to the question whether the hyperbolic
metric has smaller volume than any other metric with the same
scalar curvature. These problems definitely will serve as great
source of inspiration and lead to many other fascinating
problems.

This project will have a broad impact outside the field of
geometric analysis. These important problems are closely related
to theoretical physics, particularly general relativity. Their
solutions will greatly enhance our understanding of spacetime
structures. It is also conceivable that understanding boundary
effect under various curvature assumptions will have applications
in other areas of science and engineering. The author hopes that
the project will also have a positive contribution to
undergraduate and graduate education and training. It will be
part of the author's joint efforts with his colleagues to
strengthen the graduqate program in geometric analysis at
Michigan State University.